Mathematical Sciences/GIG: "Research and Training in Computational Harmonic Analysis"

Abstract Rochberg et al The analysis group in the Mathematics Department is currently expanding the components of its research and training program related to new computational tools in analysis, particularly those in harmonic analysis associated with wavelets. In addition to furthering the group's advanced research in those areas, the support described will enable them to develop a Bachelors/Masters level curriculum titled "Mathematical method in multimedia signal processing". The support will also allow them, in cooperation with other units of the University, to create a signal processing working group which will serve as a training ground for undergraduates, advanced degree candidates, and postdoctoral researchers. Wavelets and related techniques of waveform analysis were first introduced as theoretical tools in mathematics and mathematical physics. In addition to becoming a very active area of mathematical research they have also proved to be an extremely fertile source of new numerical techniques of broad utility. This proposal will allow to develop a curriculum which will mix theoretical and computational work and which will enable us to bring students to state-of-the-art understanding in both the theory and the applications of these exciting new mathematical and computational tools.